Participation in the WOCE Indian Ocean Expedition: Lines I4-I5W-I7C

9413164 Peterson This project is a contribution to the US World Ocean Circulation Experiment (WOCE) Indian Ocean Hydrographic Program (IO WHP). The PI will provide hydrographic support and scientific leadership for the Indian Ocean survey in the vicinity of Madagascar, designated as WOCE section I-4/I-5W/I-7C. This section crosses the western boundary currents in such a way as to make it one of the definitive sections for determining meridional transport of mass, heat and salt. ***